Experimental Study of Heavy Flavor and CP Violation with the LHCb Experiment at the CERN LHC Collider

This award supports the Particle Physics Group of Jawahery and Roberts at the University of Maryland to study the physics of heavy flavor and CP-violation at the LHCb Experiment at the LHC Collider at CERN, Geneva, Switzerland. The Maryland group is a new institutional member of the collaboration and will be making both technical and analytical contributions to the experiment in its current configuration, and forthcoming upgrades. The technical focus for the current experiment will emphasize tracking software and flavor tagging, operations and data analysis and, for the upgraded experiment, tracking and particle identification. The analytical focus will emphasize the group's expertise in CP violation studies of charm decays and loop-dominated B meson decays. Broader impacts of the program include engaging high school students and undergraduate students from underrepresented groups in science in hands research in the group's Photo Detector Laboratory on the campus in College Park, Maryland.